Thermochronology and Thermobarometry in Lithotectonic Zones in Eastern New England

Eastern New England is now recognized to consist of a number of exotic terranes joined to ancestral North America along large faults. However, the timing of the accretion of these terranes is in a state of flux. This project will gather thermometric and barometric data from both sides of these terrane bounding faults and together with existing age determinations will assess the possibility of major Alleghenian motion, not previously recognized. Results have the potential to provide a major re-interpretation of the timing of terrane accretion in New England.